Self-Consistent Field Theory and Parquet Equations for Correlated Electron Systems

This renewal grant is for an ongoing study of correlated lattice electron systems. The viewpoint is that of self-consistent-field approximations and parquet theory. This allows the generalization of Hartree-Fock theory to systems having strong correlation and large electronic fluctuations. This provides a semi-analytical alternative (and test) for numerical techniques like exact diagonalization or simulation. In addition to development of renormalization group techniques for this class of theory, various issues concerned with superconductivity and charge-density ordering in strongly correlated materials (such as high-Tc superconductors) will be studied. %%% The electronic structure of solids determines most, if not all, of the common properties of materials on which present and future technology is based. However, there are large classes of materials for which our present understanding is quite limited. One such class is strongly correlated materials (including high-Tc superconductors), in which the forces between electrons are very stong. This grant funds a project intended to extend to this new class of materials a group of theoretical techniques which allow the properties of normal systems to be understood.